NSF Young Investigator

9457928 Gelfand This NSF Young Investigator award is for condensed matter theory including numerical studies of models for phenomena in which disorder and quantum fluctuations play a crucial role (quantum Hall effect and quantum antiferromagnetism) and for studies of fullerene solids. The teaching component includes the development of a mathematical methods course including numerical techniques. %%% ***